1993 IEEE International Symposium on Information Theory; January 17-22, 1993; San Antonio, TX

This award supports travel grants for U.S. scientists and students who will present papers at the IEEE International Symposium on Information Theory to be held January 17-22, 1993 in San Antonio, TX.